Computer Simulated Experiments in Differential Equations

Calculus students are improving their understanding of applied mathematics with the help of computer simulation programs that pictorially and graphically model real-life applications. The package includes growth and decay simulations and harmonic motion simulations.